Enhancing Scientific Literacy Among Non-Major Students Using a variety of Approaches in Introduction to Psychology

9354604 Sawyer A number of issues associated with high attrition in the classroom, especially virtual reliance on learning through the lecture/discussion teaching approach, will be the focus for this project. Also, the primary goal is to improve the academic success rate among "at-risk students". Learning strategies are being developed with emphasis on improving scientific literacy, especially critical thinking and problem solving.